Global Ecology and the Preparation of Elementary Educators

To address the need to reform science education in the schools, a new course is being developed for future elementary school teachers that will internationalize the curriculum and demonstrate the impact of science on society. The objectives of the course are to 1) increase students' knowledge of environmental and social sciences, especially global issues, 2) increase students' enthusiasm to teach about science by underscoring its relevance to society and social issues, and 3) enhance the capacity of future elementary teachers to teach about the environment, global issues and their relationship. The course in global ecology will be required for all elementary education majors and will be a prerequisite for science and social studies methods courses. It combines science and social science perspectives and is to be taught jointly by biology and political science faculty members. A special feature of this course will be the development of field experiences at St. Louis institutions with a special interest in ecological issues, such as the Missouri Botanical Garden, the St. Louis Zoo and the St. Louis Science Center. Alternate exercises are being developed to help teachers adapt the curriculum to local facilities and conditions. A curriculum/implementation guide is being developed that will be presented at a national conference and a local in-service conference.